Experimentally Based Research on Nonlinear and Adaptive Attitude Control

This proposal describes a novel research program on nonlinear and adaptive attitude control of complex rotating mechanical systems. The special feature of the research program is that it is framed in terms of control experiments that can be carried out in unique laboratory facilities at the University of Michigan. Control experiments will be integrated with and guided by recent advances in nonlinear and adaptive control theory. Research on adaptive and nonlinear control theory will be motivated by the experimental results. The research is expected to advance the state of the art in adaptive and nonlinear control, especially as applied to control of complex rotating mechanical systems.